Planning Visit to Hong Kong: International Cooperative Research Program on Environmental Quality Control Using Adsorption Processes

0120235
Matthews

This grant supports a planning visit to Hong Kong by Dr. Alexander Matthews, Kansas State University. Dr. Matthews plans to carry out a series of discussions with senior researchers at the Hong Kong University of Science and Technology to develop research protocols for a multi-year program of cooperative research and exchange of students in the area of environmental quality control.